Cohomology, Skew-Products, and Partially Hyperbolic Diffeomorphisms

The proposed research has several goals. The first goal is to
study cohomological equations over hyperbolic dynamical systems.
One is interested to generalize Livsic's cohomological
results to cocycles for which periodic data is included in
semigroups in Lie groups. Positive results in this direction will
be natural generalizations of previous work, and will give
obstructions to the topological transitivity of extensions over
hyperbolic actions. The second goal is to use cohomological
results as a tool in the rigidity theory of partially hyperbolic
higher rank lattice actions. This goal is part of the rigidity
program initiated by Zimmer, aiming to classify volume preserving
higher rank lattice actions on compact manifolds. A reachable
target is to classify small GL(n,R) extensions of SL(n,Z) totally
non-symplectic actions (i.e. hyperbolic and with a special structure of the
stable and unstable foliations). The third goal is to find generic
classes of partially hyperbolic transformations with rich dynamic
properties. Pugh and Shub recently conjectured that stably
ergodicity and accessibility occur more frequently than expected
among differentiable maps, and that some partial hyperbolicity is
sufficient to prove stably ergodicity. From a result of Nitica and
Torok it follows that, under technical conditions, stably ergodicity is
open and dense in the class of partially hyperbolic diffeomorphisms
with one-dimensional central foliation. The density holds even in the
higher regularity classes. An interesting problem is to
generalize this result to more general classes of partially
hyperbolic diffeomorphisms. In other direction, a recent result
of Nitica and Pollicott shows that for Euclidean extensions of
Anosov diffeomorphisms on infranilmanifolds the only obstructions
to stable transitivity are of cohomological nature. One would like
to generalize this result to non-abelian fibers, and to classify
the obstructions to topological transitivity. The Investigator (with
I. Melbourne and A. Torok) has recent results in this direction proving
the existence of stably transitive extensions with Sp(n) fiber.

A chaotic map has a dense set of periodic points, that
is points that are fixed by a higher iterate of the map, as well as transitive
points, that is points for which a higher iterate will get arbitrarily
close to any other point. Chaotic behaviour is expected to
be generic in large classes of maps and in nature. Part of this research
will be focused on finding new mechanisms for producing chaos
for large classes of dynamical systems that exhibit only partial hyperbolicity.
It will also concentrate on finding obstructions to chaotic behaviour. These
results will be of interest to the broader scientific community involved
in applications of nonlinear dynamics in physical sciences.
A spin-off of this work will be a careful study of the semigroups in the
Special Euclidean groups with interesting applications to discrete control
theory and robotics. The Investigator actively participates in recruitment,
training and professional development of K-12 mathematics teachers. He will
continue his collaboration with undergraduate students and will support them
to give talks at professional meetings. These activities will benefit from the
grant.